Principles of Processing and Controlling Fine Particle/FluidSuspensions in Ceramic Systems

The acquisition, setup, and incorporation of a computer- controlled viscometer system and a laboratory filter press system into ceramic engineering curriculum is supported. This equipment represents a significant modernization of available instrumentation to support the teaching of ceramic processing of fine particle systems. Most ceramic manufacturing deals with the processing of powder raw materials. The ability to control these processed depends upon the engineer's understanding of the governing cause-and- effect relationships. Although such processes have been in use for many year, many details of these relationships are only just becoming clear as computers and computer modelling techniques are applied to these processing phenomena. The implementation of this equipment will allow the effects of particle size distribution and surface chemistry on the viscous properties of ceramic ware, to taught, graphically demonstrated, and studied in depth. These principles form the very basis for the successful processing of all ceramic -- traditional ceramics such as porcelains, electronic ceramics including the new superconducting oxides, and structural ceramics.